RCN-PLS: Neuromechanics and dynamics of locomotion

Animal movements result from a balance of many different forces, and are the product of neural outputs
acting on muscles driving a mechanically complex body in an unpredictable environment. Locomotion
emerges from interactions within and among these neural, sensory and motor systems and the external
environment. In order to achieve an integrated understanding of locomotion, even in very simple model
organisms, interdisciplinary approaches that combine experiments, mathematical and computational models,
and robotic models are necessary. This Research Coordination Network on the Neuromechanics and
Dynamics of Locomotion will catalyze interactions and communication between researchers from diverse
backgrounds whose combined expertise will lead to significant progress in uncovering the fundamental
processes of this complex system. We will use our successes in understanding the swimming behavior of
lamprey through coordinated neural and mechanical studies (experimental, robotic and computational) as
a model for the RCN’s approach to interdisciplinary collaborations. The RCN will provide a framework
that facilitates these collaborations through planned activities that include exchange visits of graduate
students and postdoctoral fellows among RCN laboratories, an annual Winter Workshop on Locomotion,
visits among members of the RCN network, organization of minisyposia at national meetings, and
maintenance of a locomotion website.

One ideal in neuroscience is to understand how the nervous system creates a complete behavior. Locomotion
is a prime example of such a complex behavior. Relationships among neuronal and motoneuronal
activities, and the resulting dynamic muscle forces would need to be deduced. One would then describe
how muscle forces combine with the mechanics of the organism in its environment. Finally, the integration
of sensory feedback into movement control must be described. The neuromechanics and dynamics
of locomotion present a rich array of challenges to biologists, mathematicians, engineers and computational
scientists. This RCN will support graduate students and postdocs to visit a laboratory outside their
own discipline, where they can develop a comprehensive understanding of the interplay between theory,
computation, and experiment. Members of the steering committee have demonstrated commitment to this
model of training, and have excellent track-records in the mentoring of students, ranging from directing
undergraduate research, directing MS and Ph.D. theses, and serving as advisors to postdoctoral students.
This RCN will serve as a means to increase the number of US women and minorities in scientific research.